AGS-PRF: Determining the Spatial Organization of the Substorm Current Wedge through High-Resolution Ionospheric Flow Observations

Substorms are explosive releases of energy from the near-Earth space environment into Earth’s upper atmosphere, particularly in the form of electric currents. The spatial structure of the electric current has been under intense debate, particularly regarding what sizes of currents play the most important role: a single large current or multiple small currents. Using new high-resolution observations of the ionosphere, this project will determine the spatial organization of the current system. The work will identify the key sizes of the current system and determine how the ionosphere flows during substorms. This science objective will advance our understanding of the transport of energy within Earth’s atmosphere and coupling between our atmosphere and the near-Earth space environment. In addition, this knowledge will strengthen the scientific foundation for understanding space-weather disturbances that can affect satellites, communications, navigation, and other technological systems. This proposal will support an early career postdoctoral researcher, and their community engagement through service and outreach.

The spatial structuring of substorm current wedges (SCWs) has been under intense debates over the decades, specifically whether SCWs are dominated by large-scale (> 1,000 km) or meso-scale (10s – 100s km) structures. Data and technical limitations in the prior studies prevented a conclusive determination of the dominant substorm current wedge scale-size. The work will solve this substorm current wedge problem by using new high-resolution flow observations that can determine the SCW structures much more accurately. These high-resolution flows will be applied to substorm events to determine the spatial organization of the SCWs through ionospheric measurements. The specific science objectives are: (1) Are SCWs dominated by large-scale or meso-scale structures? (2) What are the two-dimensional flow characteristics associated with SCWs? These objectives will be addressed by statistically analyzing high-resolution ionospheric flow patterns derived from Super Dual Auroral Radar Network (SuperDARN) observations, in coordination with auroral measurements from All-Sky Images (ASIs) and vertical currents derived from ground magnetometers. To accomplish Science Objective 1, substorm events will be categorized as either large-scale substorm current wedges or meso-scale wedgelets based on the relative azimuthal width of the ionospheric flow channels compared to the overall current wedge width. To accomplish Science Objective 2, two-dimensional flow characteristics, such as flow speed, vorticity, spatial extent, and number, will be calculated for the events used in Science Objective 1. By addressing these science objectives, this proposal will advance our understanding of how energy is transported and organized throughout the coupled magnetosphere-ionosphere system.